Next-Generation Environmental Geophysics Using Controlled-Source Electromagnetic Induction

0074124
Everett

Controlled-source electromagnetic induction (CSEM) imaging is one of the few scientific tools available for rapid, non-invasive, and inexpensive characterization of near-surface, environmentally sensitive sites. This award will support the development of three-dimensional CSEM finite element code to forward model the effect of topography, soil and rock electrical conductivity, and buried subsurface heterogeneities such as buried pipelines, metal fences and building structures. The resulting code will enable geophysicists to better understand electromagnetic responses in areas with complex geological structures, rugged terrain and cultural noise.
***